Workshop: Social Dimensions of Engineering Design; Claremont, California; May 2001

The workshop will address the themes: design as a social process; social and political issues in design; social issues the design for a hopeful future; instrumental approaches and methods for optimizing designs; and the confluence of ethics and design. The workshop will attract 75-100 engineering design faculty from around the country, and it will foster discussion among these faculty of the issues cited.

This Mudd Design Workshop provides a unique opportunity for engineering design faculty to come together to discuss engineering design methods and pedagogy in a forum specifically for that purpose. The workshop successfully fosters innovation in engineering design education and leads the way to the adoption and teaching of better engineering design methods.